U.S.-Brazil Cooperative Research: Growth and Dynamics of Mesoscopic and Low Dimensional Systems

This award supports cooperative research in three areas of surface physics among several groups in the U.S. and in Brazil. The principal investigators are See-Chen Ying of Brown University and Amos Troper of the Brazilian Center for Physics Research (CBPF) in Rio de Janeiro, Brazil. This work will be concerned with the growth and dynamics of mesoscopic and low dimensional systems. It consists of three interrelated projects: (1) the growth and stability of interfaces, (2) the diffusive and vibrational motion of adatoms on surfaces, and (3) the optical properties of superlattices and quantum wells with well-defined interfaces. This project involves the effort of two institutions in the United States, Brown University and the Naval Research Laboratory, and two institutions in Brazil, CBPF and the National Institute for Space Research (INPE), with a total of three investigators on the Brazilian side and four on the American side. Over the last few years a collaborative effort has already existed among the investigators. The present project would enhance further collaboration and allow a stronger focus and interaction among interrelated directions of research within the broad important area of surface and interface physics.